TEME: A Plan for Interdisciplinary Curriculum Development in Hands-On Science Education for Middle School and Community College Students

9354547 LaRose The purpose of this proposal is to further develop the TEME (Totally Enclosed Modular Environments) model as the experiential laboratory of the Human Ecology curriculum. Expanding the TEME model to include an oceanographic research simulation will enable Greenfield Community College to provide both college and middle school students with an opportunity to participate in an exciting hands-on science education program that integrates broad scientific content and effective group skills, providing a practical framework for understanding ecological and social problems. The original TEME curriculum model features a simulated shuttle orbiter experience as a metaphor for "Spaceship Earth." The TEME model will be adapted to the study of the oceans, using a deep sea submersible simulation as a vehicle for exploring this vast and still mysterious environment. We will add new content to the module program and upgrade the technology to run the simulation. In addition to Greenfield Community College faculty, curriculum specialists, and middle school teachers are involved in the curriculum development. We will develop written curricular materials for middle schools as well as software that can be used on ordinary PCs in the schools. The impact on students will include greater motivation, improved math/science skills development, greater clarity of career goals, and a broader ecological awareness. ***